NSF Workshop on Safety and Trust in Artificial Intelligence Enabled Systems

This aim of this workshop is to identify emerging issues, challenges, basic research questions, and potential approaches to study and address safety and trust in AI-enabled systems across application domains. The workshop will bring together researchers from academia, industry, and government research labs that are working in the areas of artificial intelligence, and formal methods, and application domains such as autonomous systems, business and finance, and education. The main deliverable of the workshop is a report summarizing the discussions and findings of the workshop, which will be made publicly available.

Fostering the development of collaborations and the exchange of ideas between the formal methods, AI/ML, and broader research communities and stakeholders is critical and may lead to advances in methods that improve both AI/ML and formal methods, as well as the broader concerns about safety and trust of these AI-enabled systems across science, engineering, and society. The workshop will particularly encourage participation and perspectives from persons coming from underrepresented groups.